The 3D Colonial Philadelphia Project -- Digital Restoration of Thin-Shell Objects for Historical Archeological Research and Interpretation

This project proposes to combine new and existing methods in computer vision to partially automate the tedious procedure of reconstructing ceramics from unearthed fragments. This will involve development of new computer vision research technologies that can assist this reconstruction process, thus enabling enhanced analysis, interpretation, and presentation of history evidence. The focus of the project are ceramic and other artifacts from one of the best preserved and most diverse American urban colonial archaeological sites ever excavated - the Mall at Independence National Historical Park in Philadelphia, Pennsylvania. The project proposes to develop 3D models based on surface properties of thousands of fragments found and approach this vast collection with novel theoretical and computational vision research technology. A strong collaborative methodology will be developed between the information technologists and practitioners in the domain. The project is actively support and endorsed by U.S. Department of the Interior National Park Service. A long term goal is to have a positive and profound impact on the study of historical archaeology and laboratory practice of artifact analysis.